Local Atomic Structure of Non-Periodic Solids

This program explores the defect structure of quasicrystals, superconducting oxides, and amorphous alloys using the technique of atomic pair distribution function analysis (PDF). The PDF method has been employed primarily for amorphous solids and liquids and is now being used in the examination of non-periodic atomic displacements in more ordered solids. The PDF method is refined further in this research, which examines the statistical noise, lattice dynamics, and techniques for improved accuracy in the differential anomalous x-ray scattering experiments. The main focus of the grant is on developing understanding of defect structure in the above materials, which have high incidence of atoms which deviate in position from their average sites.